Mathematical Modeling and Exploration with MathCAD

Students in precalculus and calculus are benefiting from a laboratory equipped with Hyundai computers running MathCad. The curriculum that this lab supports allows students to explore and better understand mathematical concepts and emphasizes more realistic and interesting problems. The institution will contribute an amount equal to the award.